Planning Workshop: Quantum Communications, Cryptography and Coding

Funding for computer scientists in quan um information processing has come from a variety of
programs a NSF. While a new QuBIC program has been announced in he EIA division of CISE,
there is arguably a need for a focused program on quantum information processing with a direct
focus on he computer science aspects of he research. The C-CR division of CISE would be the
natural location for such a program on "Quantum Communications, Cryptography and Coding."
To gauge the need and plan what migh be the scientific coverage and research agenda for such
a potential program,we plan to bring several of he leading researchers together for a planning
workshop.This workshop will lead to a five-to ten-page report that will give a detailed assessment
of the need for a new C-CR program and give a descrip ion of he research areas ha such a program
should focus on. By having a C-CR program on "Quantum Communications, Cryptography and
Coding," NSF would be able to focus its efforts on he computer science aspects of quanum
information processing and greatly enhance its ability o make sure he United States keeps its
leading role in his important area. This workshop and report will be the first important step in
planning such a program.